International Conference on Martensitic Transformations (ICOMAT-92); July 20-24, 1992; Monterey, California

This grant supports a symposium on martensitic phase transformations, ICOMAT-92, to be held in Monterey, California, July 20-24, 1992. Several topics are to be covered in the conference, including the physics of the martensite phase transformation, mathematical modeling, bainitic transformations, the shape memory effect, crystallography, microstructure, and the properties of martensites. Applications of materials with martensitic transformations are also considered. The proceedings are to be published in a volume that consists of the technical papers accepted for the conference. %%% Martensites are used in a number of materials systems, including shape memory alloys, steels, ferroelectrics, and tough ceramics and cermets. The conference highlights these applications and looks at other possible areas for use.